Solar Flare and Solar Interplanetary Phenomena Investigated with High Energy Charged Particles

ATM9912341abs

The investigators will conduct research using data from neutron monitors and other instruments on the Ulysses and IMP-8 spacecraft, and continue precision observations by the Climax and Huancayo Mountain cosmic radiation neutron stations. The research will focus on charged particle modes of propagation in the three-dimensional heliosphere, and charged particle acceleration phenomena in solar flares and coronal mass ejections. Using the Ulysses data, the investigators will study the recurrent 26-day modulation in cosmic ray intensity observed at high solar latitudes. They will also show how direct solar neutron detection during solar particle events provide information about particle acceleration mechanisms. The support will allow continuation of the 47 year record of cosmic ray observations from ground-based stations.